Regional Scale Current and Hydrographic Observations in the Western Weddell Sea: A Component of AnZone

The proposed work is part of an integrated research program into the oceanographic structure of the western Weddell Sea. It is to be carried out from an ice camp jointly occupied by U.S. and USSR scientists from February to June 1992. This project concerns the regional-scale circulation and the variability of the Weddell SEa boundary current. Five moorings consisting of two current meters each will be suspended from the ice at 50 kilometer intervals in a line normal to the mean direction of the current. The upper current meters will within Polar Surface Water, while the lower meters will be within the warmer Weddell Warm Water. This array will complement a series of taut wire moorings to be emplaced by the German Antarctic Program in the central Weddell Sea.